Computer-Based Mathematical Experiments and Projects in Calculus

Students are doing computer-based mathematical experiments in a classroom/laboratory equipped with Macintosh SE computers running Mathematica. A new calculus curriculum is being implemented in which students are more actively involved in the learning process by interacting with the computer, the instructor, and with each other. The institution will contribute an amount equal to the award.